Mathematical Sciences:Set Theoretic Topology

Set Theoretic Topology is a branch of Topology in which set theoretic techniques are used to solve problems about the existence of various classes of abstract spaces. Mary Ellen Rudin's specialty has been the construction of pathological, usually rather set theoretic, counterexamples. Such examples aid in the location of theorems and the building of set theoretic models in which solutions may be found to natural questions in the area. Like all studies in the foundations of a subject, results will at first be of interest only within the area (topology in this case), but broader ramifications should become apparent with time.